Space Weather: Development of a Model of Solar Wind Magnetosphere-Ionosphere Interaction

This is a project to develop a model that specifies and forecasts the conditions of the magnetospheric bow shock, magnetosheath, magnetosphere, and ionosphere for given upstream solar wind conditions. The study extends work currently being funded under the High Performance Computing and Communication (HPCC) program. While this code is utilizing advanced numerical schemes to achieve the best efficiency and accuracy, additional work is needed to apply it to space weather objectives. The effort consists of three major components. First, realistic physical parameters and boundary conditions will be used to guide the model development. Second, the physical understanding of space weather events will be used to develop other theoretical models. And third, the investigators will compare the model output with observations for specific space weather events. The end product of the project is a global MHD simulation code able to both specify and forecast the state of the near-Earth space environment.